Tort Liability Workshop; Santa Monica, CA; October 10-11, 1993

9320085 HENSLER This workshop will bring together a number of scholars from different disciplines, including economists, social scientists, and academic lawyers, to develop a research initiative on the civil justice system. The workshop will use problems having to do with tort litigation as a point of departure for considering a larger set of empirical questions about the role of the civil justice system in our society. Current controversies over tort litigation stem from claims that tort liability is a barrier to technological innovation, that malpractice suits are a major cause of increased costs in the health care system, and that lawyers are simply lining their pockets at the expense of insurance companies, consumers, and the overall economy rather than serving the interests of justice. Counter claims hold that the system serves the powerless and the ordinary citizen who has suffered harm. This side of the debate argues that the critics have no empirical grounds for their complaints. Knowledgeable social scientists are concerned that the debate is not based on valid empirical data, but rather on numbers generated by junk science. This workshop will focus on policy issues, data sources, methodological problems, and broader theoretical questions. Its product will be a research agenda on civil justice for the Law and Social Science Program. ***